(ROW) Career Advancement Award for Applying Remote Sensing to Snow, Ice, and Permafrost Research

This Research Opportunity for Women/Career Advancement Award will allow the principal investigator to develop research experience in remote sensing techniques and in their applications to the study of snow, ice, and permafrost. The effort will be directed primarily at the analysis of synthetic aperture radar (SAR) imagery, and toward the data handling and processing protocols related to the planned SAR Facility at the University of Alaska. The components of the SAR Facility will begin to come on-line within the next two to three years, and will allow the investigating of a wide range of geophysical phenomena including sea ice, ocean waves and fronts, sediment and pollutant dispersion, and glacier dynamics.